REU Site: Rose-Hulman Undergraduate Research Experience in Mathematics

The Rose-Hulman Institute of Technology will host an REU site in mathematics for the summers of 2007-2009. Each summer two faculty members will each mentor a team of four undergraduates, a total of eight students, for eight weeks. Students will work in teams to conduct original research in the areas of inverse problems related to non-destructive testing, ``prescribed curvature'' problems in geometric analysis, and the discrete logarithm problem from number theory and cryptography. The summer activities are designed to develop the participants as ``complete'' mathematicians, capable of making and proving original conjectures, learning independently, working in teams, and communicating their results clearly to others, both orally and in writing.